Management of Technological Innovation: A Strategic Management Approach to the Commercialization of Technology in Environmentally Conscious Manufacturing

Proposal #9421477 Montana State University A team of Montana State University (MSU) engineering and business researches will join with managers and engineers from Woodward-Clyde Consultants to strategically manage the application of off-gas bioremediation technology in firms seeking effective air emissions treatment as a means to achieving environmentally conscious manufacturing. This new technology promises to be less expensive, less intensive, and cleaner than existing emission control methods. The MSU team will assess the state-of-the-art in off-gas bioremediation, facilitate Woodward-Clyde management in developing applications of the innovative technology, and will develop a case history of the Woodward-Clyde management strategy in applying innovative technology. The management strategy identified for study in the project focuses on strategic technology management to integrate the many participants impacted by or involved in the innovation of off-gas bioremediation. Key participants include research and productions, regulators, and industry. The findings of this case study will be shared through workshops and other materials made available to industry, consultants, researchers, and managers with an interest in environmentally conscious manufacturing. The potential impact from this project is enormous with the promise of commercialization of off-gas bioremediation and developing a universal model for practicing strategic environmental technology management in the U.S.